A Theoretical Study of Electric Fields in the Solar Atmosphere

This proposal is a theoretical investigation into Solar Atmospheric Electric fields. Electric fields play a crucial role in the dynamics, heating and acceleration of magnetized solar plasmas. In spite of its importance, the study of solar electric fields has been neglected compared with that of the magnetic field. The situation has been gradually improving in the lastfifteen years with the reports of electric field detection in various solar structures. Recently, the sensitivity of the electric field detection has increased remarkably to less than 10 V/cm (Moran and Foukal 1990). Since higher quality data will be available soon, now is a good time to initiate a vigorous theoretical investigation of the solar electric fields to compliment the observational effort.